CUBE: Integrating Biological Engineering into Undergraduate Engineering Education at CU

This planning grant aims to build an educational infrastructure within the Department of Chemical and Biological Engineering (CBEN) at the University of Colorado that will serve as a center of excellence for educating students and integrating education and visionary research in areas that incorporate biology and engineering principles. It is anticipated that multi-faceted plan blending a number of different approaches, including new and enhanced curricula, outreach activities and pedagogical advances will lead to establishing a B.S. degree in Chemical and Biological Engineering. The plan will integrate biology, biochemistry, and biological engineering core courses and laboratories into this curriculum; use biological engineering as a vehicle to reform the curriculum by creating new courses and enhancing the core curriculum; integrate biological research into undergraduate education so that every undergraduate has the opportunity to explore the laboratory experience and students graduate fully prepared to pursue further academic endeavors or employment; and increase the enrollment and retention of minorities and women in the department.